Nuclear Structure Research

This grant to the University of Notre Dame supports nuclear physics research on a broad range of topics. The primary areas of interest include studies of heavy ion reactions of importance to nuclear astrophysics, studies of nuclear energy levels, in particular those levels involving nuclear superdeformation and very high angular momentum, and studies of nuclear giant resonances. The experiments carried out at Notre Dame will make use of the tandem Van de Graaff accelerator system. Other experiments are conducted using facilities at other laboratories which are appropriate to the problem being studied.